Engineering Research Equipment Grant: Array Processing Equipment for Communications and Signal Processing Res

This equipment project will provide state-of-the-science instrumentation needed for advanced research in the analysis and the design of communications and signal processing systems. The instrumentation consists of a floating point array processor, a host micro-vax computer, several output devices (graphics terminals, printer, plotter) and software packages. The equipment will considerably speed up the computationally intensive tasks associated with analyzing communication and signal processing systems.